Holocene History of the Sacramento-San Joaquin Delta System,central California

The investigator proposes to study the development of the Holocene Sacramento-San Joaquin Delta to elucidate its response to past climatic and eustatic changes and to use this record as an analog for the kinds of changes that will occur with future global warming. With the funds from this planning grant, the PI will locate areas with a high potential for preservation of early Holocene stratigraphy, sample sediments from these areas and determine which laboratory methods will best address the problem posed above. This preliminary research will be divided into the following phases: 1) initial map and aerial photographic investigation; 2) field investigation; 3) laboratory investigation; 4) grant writing and continued library and map research.